New Mexico Science and Math Systemic Challenge

New Mexico will foster systemic change which improves mathematics and science education in New Mexico's K - 8 public schools. The systemic change will be based on the Re:learning model of school- based reform and will incorporate new content, pedagogy and assessment in mathematics and science. The project will: 1. establish a state-level Council of stakeholders to provide guidance and oversight for systemic change activities; 2. establish regional technical assistance centers whose staffs will work directly with K-8 schools in implementing systemic change; 3. initiate staff development programs in approximately 90 elementary and middle schools in each year of the program, with each school participating in a two-year program of summer and academic year staff development activities guided by the Re:Learning model of school-based change; 4. assist in the development/dissemination of state standards, assessment systems, teacher licensure requirements, and staff development policies which are aligned with the standards being prepared by the NCTM, NSTA, and AAAS; 5. support post-secondary curriculum reforms and community organizations initiatives which are consistent with (4) above; 6. encourage the engagement of resources and programs which support the other objectives of the systemic initiative; 7. create the conditions needed to reduce the performance gaps typically associated with gender and ethnicity in math and science performance; and 8. evaluate annual progress in meeting these goals. ***